CAREER: Semantic Decomposition of Instruction Sets

The research focuses on new approaches for exposing concurrency and improving performance in modern
superscalar microprocessors. These approaches include semantic decomposition of instruction
sets and bitslice decomposition of data paths to expose elements of the processor's control and data path
to allow flexible, programmable control over at least a subset of the microarchitectural features
that are available. Preliminary analysis shows that there are significant opportunities for reducing ALU
cycle time, power consumption, and the deleterious effects of wire delay with little or no harmful
effects on throughput measured in instructions per cycle. Further, the research proposes pre-execution
using partial operand knowledge to resolve conditional branches, identify references that miss the cache, and mitigate the effects of other problematic instructions.

The primary objectives of the proposed educational plan are to integrate advanced topics into the
University of Wisconsin's computer architecture curriculum at the graduate and undergraduate level;
to continue to involve undergraduate students in research to enhance their educational experience
via exposure to leading-edge research topics; to incorporate advanced pedagogic techniques into the
classroom environment in order to accommodate all learning styles; and to exploit emerging web-based
technologies to streamline interactive and off-line communication between instructor and students.